Human Factors/Ergonomics Lab for Ergonomics in Manufacturing

This project gives undergraduate Industrial and Manufacturing Engineering students with access to modern, state-of-the-art Human Factors/Ergonomics laboratory grade equipment for physiological, psychological and cognitive measures of human performance. The integration of the microcomputer in real time data acquisition and processing, coupled with graphical displays enhances the student's interpretation of the experimental phenomena. This award is being matched by an equal amount from the principal investigator's institution.